AF: Small: Efficient Representation of Large Networks

Modern computer science has seen a dramatic blowup in the size of its most important networks. Graphs representing the internet now have around 10 billion nodes, the most popular social networks have a few billion active users, and these come alongside the rise of big-data genomics, massive neural networks, etc. Classical algorithms for graph analysis, which may have worked on networks from previous decades, are often far too slow or costly to be used on modern graphs. There is need for cheaper, faster, and more accessible methods for graph analysis.

A popular way forward is by the method of graph sketching, which carefully replaces large graphs with much smaller ``sketches'' that can be efficiently analyzed in place of the original, with only minor losses in accuracy. This project addresses a series of unanswered mathematical and algorithmic challenges at the heart of sketching distance-based properties of graphs, such as shortest paths or reachability. Three primary goals are: (i) to determine the efficacy of graph spanners, which are sketches of shortest path distances and which have enjoyed successful applications in areas like robotics, distributed computing, and circuit design; (ii) to classify the sketching problems for which more involved constructions of data structures can or cannot outperform simpler sketching methods like taking subgraphs; and (iii) to find the most relevant structural parameters of graphs, like expansion, highway dimension, etc. that control the difficulty of building a sketch of that graph. On the technical side, this project draws on methods from graph algorithms, extremal and structural graph theory, information theory, and discrete geometry.